In vitro studies in Fat Cell Diffentiation

This is a Minority Research Initiation Planning Grant to Dr. Luz S. Teicher. She will work in a Laboratory studying fat- cell differentiation and take an advanced laboratory course at Cold Spring Harbor in order to prepare a competitive proposal on the isolation and chacterization of mammalian genes effecting adipocyte conversion.